Genesee Community College Connects!

Abstract SUNY Genesee Community College - K. Mead Connection to NSFNET Proposal No. NCR-9417327 The Genesee Community College (SUNY) requests support from NSF for connection of their campus networks to SUNYnet which is in turn the gateway to the NSFNET. SUNYnet will provide operations management and information services and it will give Genesee Community College a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The College needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the schools to explore innovative educational resources.